Buffering Calcium Transients in Neurons

Nerve cells utilize calcium ions to convert electrical signals to biochemical changes within the cell. Electrical activity causes an increase of intracellular calcium in the cell. Once inside, calcium acts as a messenger, carrying information to various parts of the cell's interior. Only during electrical stimulation, or during certain pathologies, is the calcium concentration in the cell elevated. Under normal resting conditions, the intracellular calcium concentration is kept very low by a complex series of pathways which pump calcium out of the cell. The purpose of this research is to characterize the processes which remove calcium from nerve cells. The investigator is interested in determining which pathways are present in nerve cells and how calcium's relative contribution changes with the size of a calcium challenge. This study will examine calcium levels during various levels of electrical activity and locate the various calcium pathways in the cell. Nerve cells will be grown individually in culture and examined by using optical and electrophysiological instrumentation developed by the investigator. This inquiry will increase the understanding of how nerve cells process information at the molecular and cellular level, revealing new target for drugs and insight into the mechanisms of certain neurodegenerative disorders caused by calcium overload.